Modeling Late Cenozoic Changes in the Ocean Circulation

9616977 Crowley This project will continue previous studies using the Hamburg ocean circulation model and an atmospheric energy balance model to assess the effects of changes in physiography upon ocean circulation and the sediment record. A sedimentation model, incorporating calcite, opal, organic matter, PO4 and carbon isotopes will be used for the latter component. The project will concentrate upon two topics (1) gradual uplift of the Greenland-Faroe Ridge and its effect upon North Atlantic Deep Water (NADW), and (2) controls upon NADW production during the warm phase of the middle Pliocene, to be assessed with varying winds, precipitation/evaporation balance, and the effect of a warmer Southern Ocean.